NSF Connections

9417576 England This project connects three higher education institutions to NSFNET through the CERFnet mid-level network. They are: Woodbury University Burbank Webster University Irvine California School of San Diego of Professional Psychology Faculty and students at the schools benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.